Young Scholars Program ("The Coastal Erosion Project")

McNeese State University will initiate a three-week, residential Young Scholars project in Engineering for 20 students entering grades 10-12; the project will be repeated each year for a second set of 20 students. The program will take place in June and July at McNeese State University and at the U.S. Army Engineer Waterway Experiment Station in Vicksburg, Mississippi. At Vicksburg, a three-day coastal engineering workshop will introduce students to the theory and practice of coastal engineering. At McNeese, studies will consist of field work, physical modeling and classroom instruction with field work taking place at two beaches on the Gulf Coast, where students will survey and measure beach profiles. On campus, students will design, build and test models of coastal protection systems in a large wave tank. A physics laboratory course will reinforce concepts of velocity and acceleration, densities of materials and behavior of waves. Classroom instruction will be given in coastal engineering, coastal geology, computer applications, ethics of engineering, career counseling and technical writing.